A Research Site for NSF I/UCRC for Fuel Cells at USC

A planning meeting has been awarded to the Georgia Institute of Technology to determine the feasibility and viability of forming an additional research site to the Industry/University Cooperative Research Center for Fuel Cells. The addition of the research site would strengthen the intellectual base of Center by developing new materials and structures for solid oxide fuel cells and membrane reactors fro hydrogen production, purification and separation.